Curriculum Development Workshop on Advanced Materials Science & Technology

The science and technology of advanced materials impacts a number of industries. The fields of microelectronics, transportation, energy storage, power production, biomedical, and environmental science and technology are typical examples. Physics and chemistry form the basis for these technologies, and they are applied in a number of engineering disciplines. the expertise needed to impact the knowledge and expose the students to available opportunities in materails science and technology is not commonly available in two and four year colleges. In addition, high school students are essentially unaware of the field, its importance, and the opportunities that exist for future employment and contributions. The objective of this workshop are to introduce advanced materials science and technology to teachers at the two and four year coleges around the State of Florida and high schools throughout the region, with special emphasis on predominantly minority institutions. The workshop will result in the incorporation of materials science into their curricula. It is expected that this incorporation of materials science into the physics, chemistry and engineering curricula will enable students to understand fundamental principles. It will also introduce them to the exciting hgiher educational opportunities and professional careers available in the field of materials science and engineering. Products resulting from this project will include lesson plans and course materials for physics and chemistry at the high school and college levels (4 courses).